Computer Science, Engineering and Mathematics Scholarships

This project provides scholarships to qualified majors in computer science, engineering and mathematics. Awardees are determined by a four step process emphasizing minority status, recommendation of the faculty, sophomore and junior level, Pell eligibility, and a screening committee. Mentoring and monitoring of the scholars' progress is led by faculty advisors in their respective disciplines. A component of the mentoring process involves the development of course of study responsive to the career goals of the individual scholars. In addition, each scholar is provided with an internship opportunity with local industries.